Geophysical Grain Flows Conference, July 13-15, 1989 to be held at the Scripps Institution of Oceanography, University of California at San Diego

The conference for which support is requested is on a high priority topic with respect to scientific and technical research needs. It is on geophysical grain flows, but grain (particle) flow is also widely encountered in industrial practice. The list of participants includes the "right" people from both the civil engineering, mechanics, chemical, and geophysical community. Partial NSF support for direct conference costs, and participant travel is sought. Other agency solicitations (ONR, USGS) have resulted in a $6400 contribution from ONR, with the remaining costs asked from NSF. The Surficial Processes program (Dr. Massini), Earth Sciences Division, will share equally in the NSF support. Therefore, it is recommended that the FDH program fund its half of the NSF request, $3382.